ITR: Cache-Resident Databases

Abstract

Databases are at the very heart of the information economy. Database
performance is a driving factor that dictates what is possible through the
use of information technology. While database management systems have
evolved since they were invented several decades ago, their current design
is unfortunately antiquated given the state-of-the-art computer memory
hierarchies of today (and even more so tomorrow). This project seeks to
alleviate this problem.

While processor speeds double every year, memory access speeds follow a
much shallower improvement curve. To bridge this speed gap, small, fast
memories called caches are used to hold frequently accessed data and
instructions close to the processor. When executing database workloads,
accesses often miss in the (fast) cache and access the (slow) memory,
thereby reducing performance significantly. Hardware approaches are
typically limited by access time constraints and by applicability to a wide
range of workloads. To keep the hardware design feasible, caches typically
use simplistic data placement and replacement schemes, and are oblivious to
the memory access behavior of the application.

Cache-conscious software methods are, on the contrary, extremely promising.
The proposed algorithms collect data statistics in order to correctly group
data with similar usage patterns and optimize cache utilization. By
carefully observing behavior, data is prefetched into the cache before it
is used. Preliminary results demonstrate that these techniques (i) minimize
the number of misses in the cache and (ii) significantly reduce the
incurred penalties.